Nonlinear Partial Differential Equations in Continuum Mechanics

This award will support research on nonlinear evolution partial differential
equations arising from continuum mechanics. Examples include the
Euler and Navier-Stokes equations for compressible and incompressible inviscid
and viscous fluids, the equations of electro-magneto field dynamics for electrically
conducting compressible viscous fluids, the equations of elasticity, nonlinear
Boltzmann type equations in kinetic theory of rarefied gases, and equations for
combustion, multiphase flows, and fluids with chemical reactions.
The main objective is to gain better qualitative and quantitative understanding
of the behavior of solutions, using mathematically rigorous analysis and numerical
simulations. The focus will be on understanding the effects of small scale dissipations and
relaxations on the large scale fluid motions; development of singularities
and their stuctures from smooth flows; nonlinear stability or instability
and interactions for basic linear and nonlinear waves; design and analysis of
high resolution numerical methods for large scale calculations of discontinous flows;
fluid-dynamic limit problems for various kinetic models; and problems in multi-space
dimensions and in thermo-nonequilibrium. One of the main ideas is to
overcome the difficulties that are encountered at the macroscopic level by
designing and analyzing approximate models which are physically more
fundamental and mathematically tractable.

Many interesting phenomena in the mechanics of continua can be described by
mathematical models that involve nonlinear partial differential equations.
A better understanding of these models has important applications in many sciences such as
mechanics, turbulence theory, geophysics, meteorology, aeronautics, chemical
engineering, etc. This award will support work on these fundamental models.
The goal is to gain better qualitative understanding and to improve the foundations
for effective and accurate numerical simulations.